A "VISUAL" Interface for the Blind

This project is to address the issues of accessibility of computer equipment by persons with visual disabilities. Concern is expressed that the current trends in visual interfaces may significantly inhibit access by such individuals. Within this project input will be obtained by potential users, prototype systems will be developed and tested by users, and based on feedback, appropriate revisions in the system will be implemented. Finally, the materials developed will be distributed to individuals and organizations who can benefit from it. The work is an extension of the previously funded "UnWindows" project.